A Coupled Eulerian-Lagrangian Model Simulation of the Tur- bulent Transport of Sea-Spray Over a Wavy Ocean Surface

The transport of sea-spray produced at the ocean surface will be studied with a coupled Eulerian-Lagrangian numerical model. The computed concentration profiles will be compared with observations. The results of this research should lead to better estimates of heat fluxes at the air-sea interface.